RUI:Enhancement of Nonlinear Processes in Atomic Vapors Via Atomic Coherence

This RUI research project focuses on the investigation of nonlinear frequency conversion using a unique four-level rubidium system. In particular, a new mechanism for coherent light production in a rubidium (Rb) vapor will be explored. An atomic coherence is created in the vapor using two infrared lasers tuned to the two-photon 5S-5P-5D step transition in Rb. Some atoms decay to the 6P level and then, via 420 nm emission, to the ground state. With careful tuning of the two driving lasers, the second transition produces a coherent beam. The goals of the proposed research are to expand the theoretical foundation of our understanding of the mechanism for this coherent emission to test this theory through intensity, wavelength, linewidth, and coherence measurements. In addition, the corresponding cesium (Cs) system will be investigated, to establish a second new light source based on the same mechanism or elucidate critical limiting atomic characteristics. The broader impact of this work is the education of the undergraduate physics and chemistry students at Juniata College who will carry out the experiments and work on the applying theoretical models directly to laboratory studies. A further broader impact is that the new coherent light sources developed can be the basis for spectroscopy applications and imaging of laser-cooled Rb and Cs atoms.